US-Czech Joint Fund Research on Intensities in Vibrational and Electronic Energy Loss Spectroscopy

The primary objective of this US-Czech Joint Fund research project between Dr. Petr Carsky, Heyrovsky Institute of Physical Chemistry and Electrochemistry, Czech Academy of Sciences, and Dr. Josef Michl, University of Colorado-Boulder, is to study intensities in vibrational and electron energy loss spectroscopy (EELS) of a variety of molecules. The US side will contribute experimental data and computing facilities; the Czech side will provide expertise in fundamental theory and ab initio program development. Results should yield important insights into the electronic structures of molecules including diatomics and such hydrocarbons as benzene. This research in theoretical chemistry fulfills the program objective of advancing scientific knowledge by enabling leading experts in the U.S. and Czech Republic to combine complementary talents and pool research resources in areas of strong mutual interest and competence. Funds for the project are awarded through the US-Czech Joint Fund, Prague, in accordance with established guidelines.